Planning for International Education Exchange Program: In Collaboration with Tongji University, China

0400515
Hsia

This is a planning proposal for Dr. Lih Min Hsia and two professors of California State University at Los Angeles to visit Tongji University, China, to establish an international
education exchange program. Tongji is a good university in China for establishing educational collaboration. The success of this visit can provide the needed international experience for U.S. science students.